High School Psychology Teachers' Science Skills Equipping Project

Westminster College, New Wilmington, Pennsylvania, will conduct the "High School Psychology Teachers' Science Skills Equipping Project" for forty participants. In each of two summers, a four-week long module will have as its focus research methods applied to cognitive and physiological psychology relevant for the high school psychology curriculum. During three afternoon laboratories each week, participants will act as students in demonstration experiments conducted by the project faculty. Demonstration experiments based on lectures and readings will be designed by the participants, enabling them to approach psychology as a science. Microcomputers will be used to demonstrate basic psychological processes and replicate classic and current experiments in psychology in the high school classroom. During the academic year, the project staff will visit each of the participants classes, conduct two half-day in-service sessions, and assist in developing a newsletter and psychology fairs. Participants will return to the campus for a weekend at the end of the academic year to share their insights and integrate their experiences into the second summer module for 20 different participants. An extensive and careful evaluation plan has been outlined.